International Collaboration in Chemistry: A New Molecular Architecture for Organic Electronics

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

Professors Jeffrey Schwartz and Steven L. Bernasek of Princeton University are supported by the Analytical and Surface Chemistry Program in the Division of Chemistry to conduct research in collaboration with Professor Marc Tornow of Braunschweig University of Technology, and Professor Gerhard Abstreiter of the Technical University of Munich to develop a new molecular architecture for organic electronics. Self assembled monolayers of active organic molecules will be synthesized via surface-bonding of phosphonate groups to native or grown SiO2. The resulting complex is then reacted with aromatic biphosphonates to form a bilayer structure. Multiple application of the reaction scheme results in the growth of ordered multilayers. Finally, these multilayers will be included as the active semiconducting component into Si-SiO2-based electronic devices. The ultimate goal is to integrate fundamental surface science and interface synthesis chemistry with novel device architecture to build the next generation molecular scale transistors for applications in microelectronic devices. This project exposes students to an international research experience and provides them with opportunities to network with researchers in Germany. The project is supported jointly by the NSF and the Deutsche Forschungsgemeinschaft (DFG).